Characterizations and Imaging of Highly Scattering Material Using Laser Speckle

9901907
Webb

The proposal describes a program to develop a new approach, based on recent success in speckle characterization of high scattering media by the PI, to achieve imaging reconstruction. The PI has demonstrated that speckle statistics depend on the coherence time of the laser source used in the measurement and the standard deviation of the mean photon travel time in the medium. This work will expand on these findings by refining the measurements using coherence-synthesized sources and explore techniques for reconstruction of the imaging through inversion schemes that employ diffusion equations and statistical metrics.